CISE Research Instrumentation

An integrated system consisting of a mobile robot, high-speed image processing hardware, and a real-time operating system will be purchased and used in several robotics research projects. These include: * Visual motion for robot guidance * Autonomous agent behavior specification and analysis. * Agent construction using discrete event dynamic systems. This system will permit closed loop control methods and aid in validation and techniques involving active camera control.